Engineering Research Equipment Grant: Scanning Electron Microscope

This project provides support to acquire a scanning electron microscope to support a variety of research projects at the Illinois Institute of Technology. The specific research areas include experimental mechanics, materials processing, composite materials, railroad transportation, desiccant materials, and tribology.